Topological Dynamics in Real and Complex Systems

The proposal deals with several topics in low-dimensional
dynamics. The PI plans to investigate the topological dynamics
of laminations; in particular he would like to further develop
the dynamics of growing trees and use it to study the behavior
of the vertices of the Julia set. He also wants to consider
classes of non-analytic plane maps for whom analogs of well-known
results for polynomials can be proven. Other directions of his
research are related to attractos for classes of rational maps
and to further developing the rotation theory which studies
coexistence of cycles depending on their characteristics similar
to rotation numbers for circle maps of degree one.

The theory of dynamical systems gives tools to study complex
systems, for example the evolution of a complicated deterministic
process over time. There is a rich and distinguished tradition
of using these powerful tools in other sciences like
communication theory, statistical physics, and chemical kinetics.